Second World Congress of Cliometrics, Madrid, Spain, June, 1989

The National Science Foundation has supported the annual Cliometrics Conferences as well as the First World Congress of Cliometrics in recent years. The meetings continue to serve as an important means for encouraging research in economic history and as a forum for disseminating new methods and findings among historians as well as economists at home and abroad. The Second World Congress will bring together 75-100 scholars from around the world to discuss and compare both basic cliometric tools and their current research results. This proposal asks support for some administrative costs and partial travel of some, but not all, United States participants at the Second World Congress of Cliometrics, to be held in Madrid, Spain, in June 1989.